Core Proposal for Federal Facilities Council

0071366
Little
This proposal requests partial support for the 1999 Technical Activities Program of the Federal Facilities Council (FFC). The program supports:

completing two information studies: Performance Measures for Facilities Management-Related Activities; and, Integrating Sustainable Design, Life-Cycle Costing, and Value Engineering into Facilities Acquisition;

redesigning and substantially upgrading the FFC Internet home page to significantly enhance the FFC's networking and information-sharing capabilities; allow sponsoring agencies' field offices to participate more fully in FFC activities and networking; and to expand outreach efforts to other public and private sector organizations involved with facilities design, operations, and management;

convening a Government/Industry Forum on Best Practices in Design Review Processes; a workshop on Building Commissioning: Developing Electronic Operation and Maintenance Manuals for Computerized Maintenance Management Systems; a workshop series on The Changing Nature of the Workplace: Planning for Office and Administrative Facilities in the 21st Century, and a workshop on facilities condition assessment practices.

publishing and distributing six technical reports containing the findings of the information studies and summarizing the proceedings of the forums and workshops; and

providing administrative support and technical expertise for approximately 45 standing committee meetings of the member organizations.